netIOWA Group Proposal For Connecting to the Internet

9316752 Criswell This award connects eleven higher education institutions to NSFNET through the netIOWA network. The institutions are: Briar Cliff College, Sioux City Des Moines Area Community College, Ankeny Dordt College, Sioux Center Morningside College, Sioux City Mt. Mercy College, Cedar Rapids Northeast Iowa Community College, Calmar/Peosta Palmer Chiropractic University, Davenport Simpson College, Indianola Teikyo Marycrest University, Davenport Teikyo Westmar University, Le Mars Western Iowa Technical Community College, Sioux City Faculty and students at the institutions will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.